FRG: Modeling and Computation of Objective Structures in Materials Science and Biology

Luskin
DMS-0757355

The investigators in this FRG project develop and study the
theory of objective structures. By definition, these are
structures composed of identical molecules having the property
that corresponding atoms in each molecule see precisely the same
environment up to an orthogonal transformation. Objective
structures generalize classical crystal structures, and include
many of the most intensely studied structures in science today,
including carbon nanotubes, buckyballs, viral capsids and other
parts (necks, tails, baseplates), many common proteins, bilayers,
and many other nanostructures now being synthesized, especially
via the process of self-assembly. The investigators exploit the
symmetries of these structures to develop computational numerical
methods for molecular dynamics, a mathematical theory for the
self-assembly of objective structures, a quasicontinuum numerical
method for defective objective structures, and simpler
first-principles calculations of the energy of these structures.

Nanostructures are becoming increasingly important in a
variety of scientific and technological applications. Objective
structures are the building blocks of nanostructures, both
organic and inorganic. A comprehensive and unified mathematical
treatment of such structures has the potential to lead to the
discovery of new structures with unusual forms of ferromagnetism
and ferroelectricity and unexpected transport properties. The
detailed investigation of the self-assembly of objective
structures can lead to new methods of synthesis of such
structures, especially methods that produce nanostructures of
desired dimensions and molecular arrangement. These, in turn,
could lead to new strategies to combat viral infections, and new
methods for the templated growth of particular nanostructures
such as carbon nanotubes. The quasicontinuum mathematical
methods deliver a general strategy for the systematic
investigation of the process of nucleation and growth of defects
in nanostructures. These methods are expected to give a
systematic new tool for the discovery of exceptionally strong
molecular structures.